TOGA: NOAA WP3D Gust Probe System for COARE

This project covers the reduction of raw data from the radome type gust probe systems and from the fast response temperature and humidity sensors installed on the two NOAA WP3Ds for the TOGA/COARE field experiment. Previous experience with these data sensors indicates that high quality turbulence data as well as data for sensible and latent heat fluxes will be obtained. This research is important because it serves as one of the studies of TOGA COARE that links convective scale physical processes to the larger scales that impact climate variability in an especially climate sensitive region of the world, the western Pacific Ocean, the field site of TOGA COARE.